Excellence in Research: The Second Quantum Revolution

This HBCU EIR project is an in-depth and interdisciplinary investigation on the emerging field of Quantum Information Science (QIS). The research integrates data analytics, policy-focused interviews, and comparative analysis to examine the impact of QIS on the Second Quantum Revolution. The project will deliver evidence-based, policy-focused analyses of the challenges posed by the Second Quantum Revolution to national science strategies, science funding, science policy, security concerns, governance challenges, and ethical concerns. The research project will contribute to the development of digital scholarship research capacity at the home university.

The core methodological principle of this project is an interdisciplinary integration of advanced data analytics, research-grade interviews of leading scientists, and comparative analysis of findings. By using quantitative analyses to inform the design and refinement of interviews, and oral histories to guide the interpretation and focus of data analytics, the project will test, validate, and refine insights across all components of the project. The project will produce a QIS analytics platform that is public and open-source, as well as an open-access archive of the interviews and publications that will address policy, ethical, legal, and international challenges posed by QIS.